SBIR Phase II: Second Generation Lead Chemical Vapor Deposition Precursors for Lead Titenate

This research will focus on optimizing the physical properties of lead complexes identified in Phase I as safer, more volatile precusors for chemical vapor deposition (CVD) of ferroelectric materials. These lead CVD precursors will contain ligands surrounding the lead center carefully selected to optimize the physical, chemical, and environmental characteristics of the reagents. Deposition of device quality lead zirconate titanate films will be demonstrated and large scale synthetic methods will be developed. CVD is the most promising manufacturing method for lead based ferroelectrics, and these new ferroelectrics will be specifically designed to meet high purity film growth and current safety requirements. This makes desirable for numerous electronic devices including non-volatile memories, electro-optic spatial light modulators, piezoelectric actuators, and pyroelectric infrared detectors.